CRI: A Cost-Effective, Large-Scale Storage Infrastructure for CMU Researchers

Abstract

Proposal: CNS 0454279
PI: Gregory R. Ganger
Institution: Carnegie-Mellon University
Program: NSF 04-588 CISE Computing Research Infrastructure
Title: CRI: A Cost-Effective, Large-scale Storage Infrastructure for CMU Researchers

Investigators at Carnegie-Mellon University will build a prototype large-scale storage infrastructure from cost-effective components and explore computer science and applications research with this equipment. Researchers will acquire approximately 100 Terabytes of storage; it will be deeply instrumented to acquire information on workload, faults, administrative tasks, power and other parameters to support research on fault tolerance and self-management. Applications, including network intrusion research, design and testing of circuits, and nanotechnology will provide realistic workloads as well as be supported to enable advances in these research areas. Broader impacts of this include creation of cost effective storage architectures to support data intensive science and engineering applications.